New Methodology for Stereocontrol in the Synthesis of N- Containing Compounds (Chemistry)

This grant in the Organic and Macromolecular Chemistry Program supports Professor David R. Williams' broad research to explore new synthetic methodology, with advantageous development of advances in acyclic stereocontrol. A specific goal is to allow introduction of nitrogen as a surrogate amine. Overall, these strategies will focus on selective ring forming processes with efficient assembly of stereochemically complex amino-alcohols. The project will investigate the fundamental chemistry of medium-sized cyclic amines and amides as well as the character of 1-azaı5.3.0!bicyclodecanes.